Mathematical Sciences: Problems in Stochastic Control and Nonlinear Filtering

This project concerns the feedback stabilization of controlled dynamical systems in which the system parameters are incompletely known or known only with some uncertainty. This is a problem of great practical importance since virtually all realistic control systems contain randomness which precludes exact knowledge of system dynamics. One approach to linear problems of this kind is to introduce an associated quadratic cost functional and to seek an admissible control which minimizes this functional. Since any control with finite cost is necessarily stabilizing, this would provide an optimal stabilizing control which, in addition, can be shown to be given by a certain feedback law. When the system parameters are known exactly, an optimal control can be obtained by solving the Hamilton-Jacobi-Bellman (HJB) partial differential equation of dynamic programming. However, the present problem is not amenable to dynamic programming because of its 'partially observed' nature. Certain of these problems will be reduced to 'completely observed' problems to which dynamic programming can be applied. Some questions about the information rate for certain nonlinear systems will be studied.